SBIR Phase I: NSF 09-541 NM N2: Cubic Silsesquioxanes as Green, Novel, Nano-engineered Materials for Hard, Thermally Stable and Hydrophobic Coatings

This Small Business Innovation Research Phase I project is to develop materials that function as semi-permanent mold release for the tooling industry. The coating systems proposed also offer icephobic, hydrophobic (non-stick), antibacterial and corrosion resistant properties.

The tooling industry employs numerous combinations of materials and
processes that require a release agent to reduce adhesion of parts to the tool. Water or silicone based releases are the conventional solution, but need frequent application incurring high material and labor costs. This solution offers considerable cost savings that will be very valuable for most tool companies.